Acquisition of a 300 MHz NMR Spectrometer

This award from the Chemistry Research Instrumentation Program along with the Instrumentation and Instrumentation Development Program of the Division of Instrumentation and Resources will help the Department of Chemistry at Washington State University acquire a 300 MHz NMR Spectrometer. The projects described by the major users include development of novel synthetic methods such as the use of boronic esters in asymmetric synthesis, and the use of metal-halogen exchange reactions in chiral synthesis of novel macrocycles; the synthesis of altered nucleotide bases and their incorporation into DNA; the investigation of electron transfer in organometallic complexes; the synthesis of isotopically enriched terpenoids for biosynthetic studies; the synthesis of potential metabolites for ligin biosynthesis; and the synthesis of isotopically enriched substrates for mechanistic studies of enzymes of aromatic amino acid biosynthesis. %%% Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectroscopy is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.